Time, Technology, and the Flow of Work in Groups

This research calls for (1) building a comprehensive conceptual model of the flow of work in groups, (2) using that model as a framework with which to integrate existing theory and evidence about the impact of technological enhancements on groups, and (3) using that integration as a basis for planning a systematic program of research to assess the model and evaluate proposed technological enhancements. Task one, building the conceptual model, will be based on recent work by the principal investigator and colleagues on temporal factors in group interaction and performance. The fully articulated conceptual model is one end-product of the research. Task two involves review and integration of research on technological enhancements in groups. An up to date assessment of that body of research is the second end- product of the research. Task three involves using the model and the integration to formulate a systematic research program for subsequent empirical research on the flow of work in technologically enhanced groups. That detailed formulation of a program of research is the third end-product of the research.//